Belmont Forum Collaborative Research Food-Water-Energy Nexus: Enabling adaptive integration of technology to enhance community resilience

Many cities across the globe are facing difficult challenges managing their food, water and energy systems. The challenges stem from the fact that the issues of food, water and energy are often tightly connected with each other, not only locally but also globally. This is known as the Food-Water-Energy (FWE) nexus. An effective solution to a local water problem may cause new local problems with food or energy, or cause new water problems at the global level. On a local scale, it is difficult to anticipate whether solutions to one issue in the nexus are sustainable across food, water and energy systems, both at the local and the global scale. Innovative solutions that encompass the nexus are particularly important to enable cities to better manage their food, water and energy systems and understand the benefits and tradeoffs for different solutions.

This award supports U.S. researchers participating in a project competitively selected by a 29-country initiative through the joint Belmont Forum- Joint Programming Initiative (JPI) Urban Europe. The Sustainable Urbanization Global Initiative (SUGI)/Food-Water-Energy Nexus is a multilateral initiative designed to support research projects that bring together the fragmented research and expertise across the globe to find innovative solutions to the Food-Water-Energy Nexus challenge. The call seeks to develop more resilient, applied urban solutions to benefit a much wider range of stakeholders. The rapid urbanization of the world's population underscores the importance of this focus. International partners were invited to develop solutions for this challenge. The funds requested will be used to support U.S. participants to cooperate in consortia that consist of partners from at least three of the participating countries and that bring together natural scientists, social scientists and research users (e.g., civil society, NGOs, and industry). Participants from other countries are funded through their national funding organizations.

This project aims to generate actionable information by analyzing the distributed production and storage of materials and energy flows into, out of, and within a community/city given their consumption patterns and supply chains associated with various FWE nexuses. This project will develop a multi-scale modeling framework to address the inter-relationship between multiple stressors affecting the food-water-energy nexus in 3 urban environments, Amsterdam, Orlando, and Paris. The models will investigate the impacts of increasing metropolitan populations, rapid land use change, shifting social, economic and governance norms, escalating climate variability, and changing ecosystem services within each of the investigated FWE nexus to elucidate the resultant water, carbon, and ecological footprint for each location. This information should ultimately enable us to understand the trade-offs and balances between various drivers and their impacts on each segment on the nexus which will help to develop scenarios that can optimize the sustainability of the food-water-nexus components for each location. This information will be used to understand the role of key technologies in different types of nexuses associated with different urban planning scenarios affect the final sustainable solution; and how different social networks help evaluate the acceptance of these potential technologies across different cultural contexts. This knowledge can then be used to understand both the physical and social resilience of the location and community to potential scenarios.